Conference on Frontiers in Applied and Computational Mathematics

The Principal Investigators will organize the conference "Frontiers in Applied and Computational Mathematics 2016", to be held at New Jersey Institute of Technology (NJIT), Newark, New Jersey, June 3-4, 2016. Contributions from all areas of applied mathematics and statistics are welcome. The main conference themes will be on mathematical and computational aspects of materials science, mathematical biology, wave propagation, biological and microscale fluid dynamics, statistics, and biostatistics. Each of these topics is at the forefront of current developments of mathematical and computational techniques. Together they have practical applications that include the understanding and development of new materials, the central nervous system, acoustic and electromagnetic wave phenomena, the behavior of cellular and other soft matter, and improved analysis of data from clinical studies and spatial and societal statistics. The conference participants will include mathematicians, statisticians, scientists and engineers from academia, industry, and government laboratories. The conference will bring together students, junior researchers, and leaders in their field from the US and other countries to interact and exchange ideas in an informal and approachable setting. A goal of the organizers is to introduce future leaders of applied mathematics and statistics to established investigators and emerging research areas. Participation among graduate students and postdocs is greatly encouraged through selected contributed talks being given in minisymposia alongside leading scientists. For students and postdocs, this will be a learning and networking experience that will help them with their research and career paths. Special efforts will be made to continue the participation of underrepresented groups.

The two-day conference will include four plenary talks, one in each of this year's focus topics: materials science, the interface between statistics and neuroscience, wave propagation, and biologically motivated fluid dynamics. Morning and afternoon minisymposia will be given in three parallel sessions: one in an area of statistics or biostatistics, and two in this year's focus areas of applied mathematics. Poster presentations will be actively encouraged from all areas of applied mathematics and statistics. The conference is expected to attract 140-160 participants. Substantial funds will be devoted to support the participation of students, postdoctoral fellows, junior researchers, and underrepresented groups. The Department of Mathematical Sciences at NJIT has hosted a conference of this type on different focus areas each year since 2004. More information can be found at the conference website http://m.njit.edu/Events/FACM16/